U.S.-Korea Cooperative Research: Dynamic Local Field and Structure of an Electron Gas at Metallic Densities

This proposal requests funds to permit Dr. M. Howard Lee, Professor of Physics, University of Georgia, to pursue with Dr. Jongbae Hong, Associate Professor of Physics, Seoul National University, for a period of 24 months, a program of cooperative research on the dynamical behavior of an electron gas. Specifically, the research will address problems concerning the frequency or time dependent behavior of electron gases, such as critical damping of the plasmon, dynamics of a classical electron gas and the fifth moment, and dynamics of a layered electron gas. The time and frequency behavior of an electron gas at metallic densities has been the subject of intense research by a number of workers during the past decade. The present cooperative project is based on advances made in research under NSF Grant No. INT-8517639 on the time and frequency dependent response of an electron gas at metallic densities and at intermediate wave vectors. This research may contribute to a better understanding of electronic systems in metal-oxide-semiconductors and in heterostructures. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of information, ideas, skills, and techniques and through collaboration on problems of mutual interest and benefit. Support for Korean participation in the project is provided by the Korea Science and Engineering Foundation (KOSEF).